A Knowledge-Based Framework for Creating and Sustaining Transformational Change for Student Success in STEM

With support from the Improving Undergraduate STEM Education: Hispanic-Serving Institutions (HSI Program), this Track 3 project aims to use a collective impact lens to create systemic, transformational change at the University of Texas at El Paso in order to increase the number of students who are competitive in STEM careers. Increased participation in STEM fields at the national level will require a bold, holistic, and replicable institutional approach that considers learning outcomes, students’ experiences, internal organizational structures, and external influences. The proposed model will intentionally embed proven high-impact practices in teaching and learning, professional development, and policies and procedures, with the potential to shift culture across the University.

The project goals are to institutionalize the systematic use of data and the authentic engagement of key stakeholders to build sustained change through continuous improvement; to transform the University’s STEM undergraduate education through the professional development, teaching and learning, and research capacity building; and to maintain, sustain, and build upon inclusive infrastructure and resources. Project personnel will identify, stratify, organize, present, and distribute data to be used for decision making. A transformation team coordinated by the Provost’s Office will use those data to recommend, plan, and evaluate action on relevant issues. In a revitalization of the curriculum, working groups of faculty will develop modular materials that will be included in the University core to increase student engagement in instruction, build STEM competencies, and engage students outside the classroom. The Institute for Scholarship, Pedagogy, Innovation, and Research Excellence (InSPIRE) will implement a professional development series on asset-based pedagogy. The University will develop its capacity in social science research on high impact practices and STEM education. The Provost’s Office will work with administration and the Faculty Assembly to codify policies and procedures that recognize faculty and staff efforts in effective teaching and learning. The administration will work to select, compensate, develop, and mentor future faculty leaders invested in collective impact that stresses an excellent education for all. The project will increase publications on metrics-based planning; regular use of metrics and research by deans, chairs, and program directors in planning and improving interventions; the ability to understand multiple perspectives on data through visualization; and shared understanding of effective practices. The project will achieve changes in core curricula that provide equitable opportunities to students. Changes will be institutionalized and sustained through policies and procedures that recognize and reward faculty and staff who focus on student success. The HSI Program aims to enhance undergraduate STEM education and build capacity at HSIs. Projects supported by the HSI Program will also generate new knowledge on how to achieve these aims.